The Introduction of Polymer Chemistry into the Undergraduate Chemistry Curriculum

The Department of Chemistry is purchasing equipment for a laboratory course in polymer chemistry. The equipment is allowing students to more fully characterize polymers by the determination of molecular weights, thermal properties, and mechanical properties. An unusual feature of the course is the emphasis on the influence of various additives on the thermal and mechanical properties of polymers.